Elements: SciInterop: Cyberinfrastructure to Design, Debug, and Reuse Interoperable, AI-Assisted Scientific Analysis Pipelines

Scientific discovery increasingly springs from scientists’ analyses of massive, heterogeneous datasets, each requiring its own custom data analysis pipeline. Despite the rising centrality of computational methods, many scientific analyses are assembled in a combination of fragile, non-reproducible sessions with GUI-based applications, along with ad hoc scripts that colleagues and other scientists cannot reliably re-execute or adapt. This project promotes the progress of science by developing SciInterop, a novel program authoring technology for generating guaranteed-valid scientific analyses. The new tool lets scientists build analysis pipelines by answering a series of questions, rather than fighting their way through the dense and unfamiliar syntax of an ever-increasing pool of programming languages and analysis libraries. By making it easy for scientists to author guaranteed-valid data analyses, SciInterop promises to make the computational work of modern science more approachable and less error-prone. In fact, with modern AI tools, SciInterop automatically generates re-runnable, repurposable analysis scripts even from the text of published papers, without additional human intervention. Incorporating cutting-edge analyses into SciInterop makes them easy for scientists to integrate into their own work, lowering the barrier to adopting new computational methods as they emerge, including AI-backed methods.

SciInterop advances the foundations of program generation technology. State-of-the-art program authoring techniques make code generation highly accessible but fail to support scientists in the two hardest elements of authoring scientific analyses: (i) problem decomposition: translating from a high-level abstract goal to a set of tractable, small-scale subproblems; (ii) assessing validity: ensuring that an analysis program does indeed support the scientific claims that the scientist wants to make with the program outputs. SciInterop’s novel interactive and valid-by-construction approach solves exactly these challenges, advancing the state of the art in the “program synthesis” research area. In addition to making correct programs easy and achievable via novel Programming Languages (PL) technologies, the proposed work integrates PL techniques with generative AI to automatically input the vast body of published scientific papers to create a searchable database of publication-linked and reproducible analysis workflows. By uniting PL innovations and modern generative AI in a single platform, the project offers a blueprint for creating usable programming tools across the full spectrum of data-rich scientific domains.